Computer Aided Type Synthesis of Mechanisms

The computer integrated mechanism synthesis system, taking the form of a "knowledge-based system", will make use of man-machine interface theory to guide the designer through multitudes of possible mechanism designs. New kinematic design criteria will continue to be developed drawing from geometry, relative kinematics, graph theory, and industrial designers' problems. Development of these criteria represents fundamental breakthroughs in the understanding and formalization of the initial stages of the mechanism design process. Parallel research will continue in the theory and application of type synthesis, artificial intelligence, and certain areas of dimensional synthesis. Expert system design modules will be developed and tested to help evaluate their usefulness to the designer and to investigate potential productivity increases by using these new tools.